Acquisition of a 300 keV FEG Electron Cryomicroscope

Abstract The National Center for Macromolecular Imaging (NCMI) URL:HTTP://ncmi.bioch.bcm.tmc.edu at Baylor College of Medicine (BCM) requests partial funding to acquire a 300 keV electron microscope equipped with a field emission gun and a liquid helium specimen stage. NCMI is a national resource center supported by the National Center for Research Resources of NIH. Its mission is to develop electron imaging of macromolecular assemblies near atomic resolution. We also conduct methodology development, collaboration, service, technology dissemination and training. The improved imaging capability will be used in all these components of the NCMI research mission.